Mathematics and Undergraduate Education: A New Framework for Mutual Invigoration

The project is an Indiana University System effort to restructure the ways in which mathematics relates to the rest of the undergraduate curriculum. The collaborating institutions are IU-Bloomington, IUPUI/Indiana University- Purdue University Indianapolis, IU-East, IU-Kokomo, IU- Northwest, IU-South Bend, IU-Southeast, and IUPU-Fort Wayne. The ultimate goal of the project is to create a new framework for collaboration between mathematics departments and the faculties of other disciplines, as well as a new culture among undergraduates that will revitalize the learning of mathematics and reinvigorate undergraduate education. There are three interrelated objectives: 1) To create interdisciplinary courses in which students learn new mathematical ideas and acquire new tools through contextualizes problem solving and which involve the cooperation of the mathematics faculty with other faculty from a variety of disciplines. 2) To change student attitudes toward mathematics by developing an academic and social infrastructure to encourage all students to see the relationship to other subjects, the real world, and their own ambitions and goals; 3) To change the academic infrastructure to make permanent positive changes in the teaching and learning of mathematics on the eight Indiana University campuses and beyond.